Extending Science Education: Teaching With and About Technology

The Tech Museum of Innovation will conduct at its facilities in San Jose, CA a three-year project "Extending Science Education: Teaching With and About Technology". Twenty middle school and twenty high school science teachers per year from northern and southern California will work with industry experts and museum staff to learn about latest innovations and developments, having access to industry research and development facilities through summer workshop activities including behind-the-scenes tours and hands-on labs at the Museum that replicate industry applications useful in biology, computer science, chemistry, physics, and mathematics taught at participants' schools. "Challenge activities" based upon these real-world applications will be developed by each of forty, four-person teams beginning in the two-week summer workshop for the teacher-participant and then completed and implemented by a team formed by that teacher with three other teachers of science. They are supported by a mid-year teleconference of participants, project staff, and industry experts in addition to at least one half-day coaching visit and "as- needed" consultation by project staff and industry experts. Dissemination includes each of the 120 participants receiving the publication of all 120 challenge activities as well as presenting their projects in person at a spring fair open to all teachers and community members. Cost sharing by the museum, school districts, and industry accounts for 88.7% of the NSF budget contribution.